ADVANCE Fellows: How Dust Affects the Electrodynamics of the Earth's Mesosphere

The objective of this project is the development of a student-accessible sounding rocket program for the study of the Earth's ionosphere. The goal of ADVANCE is to increase representation of women in science and engineering, and this award would greatly advance such efforts to develop an externally-funded independent research program. The goal of this project is development of sounding rocket projects to explore various ionospheric phenomena, including plasma-neutral coupling, dusty plasmas, chemical-induced artificial aurora and ionospheric heating experiments.